Mathematical Sciences: Algorithmic Algebraic Geometry

Research is planned in algorithmic algebraic geometry and its applications to geometric modeling, symbolic computations over finite fields, and computational group theory, with special emphasis on the following topics: 1. Unambiguous Solid Model Representations 2. Robust Surface Intersections 3. Implicitization and Parameterization 4. Multi-polynomial Resultants 5. Resolution of Singularities in Characteristic p 6. Galois Groups of Algebraic Curves Algebraic Geometry is a venerable, deep discipline in pure mathematics, involving symbolic abstractions of geometric objects. This is an area that is currently seeing diverse and exciting applications.